Building Leadership to Enhance the Teaching of Secondary School Biology in Mississippi

This project is a three-year program to establish a partnership of five universities, fifteen community colleges, the State Department of Education, and school districts from throughout the state of Mississippi to improve high school biology education. In order to accomplish this goal, ten five-member teams from throughout the state (three high school teachers and two community college instructors per team) will be prepared as master teachers at two summer institutes in the content areas of molecular biology, genetics and evolution. The institutes will be hosted by The University of Southern Mississippi. The teams will collaborate with the State Department of Education in the revision of the high school biology curriculum and will conduct 52 hour workshops at local sites throughout the state that will update an additional 470 high school biology teachers in the content area focus and appropriate pedagogy. An equipment lending program will support the equipment needs of the teachers in the implementation of new laboratory explorations. The specific objectives of the project are to help teachers 1) integrate the processes of science skills to the teaching of biology concepts, 2) build students' conceptual understanding of biology rather than the recall of isolated facts, 3) acquire laboratory and field skills appropriate for teaching these contemporary topics, and 4) to develop strategies to teach decision-making on biological and controversial issues. Cost sharing equals 51.9% of the NSF award.